SST: Colorimetric MicroArrays for Detection of Toxic Industrial Chemicals

0528499 Suslick This project will continue productive work in the PI's laboratory on cross-reactive colorimetric sensor arrays to detect toxic industrial chemicals (TICs) in air and water matrices. The work has three goals: (1) miniaturization of a colorimetric array and array reader; (2) quantitative characterization of the sensitivity and response time of colorimetric micro-arrays to trace levels of TICs in the gas phase; and (3) quantitative characterization of the sensitivity and response time of colorimetric micro-arrays to trace levels of TICs in water. Arrays previously developed by the PI for TICs in air are inexpensive, sensitive, and selective; this project will develop techniques to fabricate much smaller and well-controlled dye spots and miniaturize the scanner that reads the arrays.